Improving Usability of Software Process Programs

Proposal Number: CCR-9988254
PI: Lerner, Barbara S.
Institution: Williams College
Title: Improving Usability of Software Process Programs

The goal of software process programming is to encode software processes in
a language that is amenable to formal analysis and execution. By executing
a software process, the quality, cost, and timeliness of software products
should improve. While process programming languages can describe processes
accurately, organizations do not execute process programs to guide process
execution. One impediment to the adoption of process program execution is
that little attention has been paid to user interface issues. The research
involves developing extensions to process programming languages, developing
a style for more usable processes, and addressing issues of how to make a
process program usable to both novice and experienced users. Extensions
allow re-execution of parts of a process to try alternative approaches,
dynamic error handling, and customized user interfaces. The extensions
provide more flexibility to process users. This flexibility is balanced
against the demands of the process to guarantee that the quality, cost, and
timeliness goals of the process are not compromised. The research
investigates this tradeoff, balancing the programmability of the process
language against the usability of the resulting processes, striving to
maintain the benefits of process programming while making their execution
more acceptable to the user community.